Acquisition of an Industrial Micro Computed Tomography System for Multidisciplinary Research

0116867
Hnat
This is a proposal to acquire an industrial micro computed tomography (microCT) system to be used for the detailed examination of bone samples. The micro CT system includes a variable power CT, an image intensifier, a turntable, and 3D visualization software. Some of the areas of research include: (1) studying three-dimensional trabecular bone architecture, (2) investigating molecular mechanisms of bone formation and resorption, (3) assessing the quality of bone during healing of fractures, and (4) creating more accurate biomechanical joint models. Engineering applications include flaw detection, measurement of fracture or fracture propagation, feature recognition, and non-destructive evaluation.